Second Workshop for High School Teachers of Mathematics and Science (June 4, 2003 in Denver, Colorado)

The intellectual merit of the proposed Workshop:
The purpose of this workshop is to enhance the cooperation among
various control groups and high school teachers of mathematics and science
throughout the United States and the world, to give attention to control and
systems ideas and technology, and to increase the general awareness of the
importance of control and systems technology and its cross-disciplinary
nature among high school teachers and students.
Control and Systems Science occurs in many different disciplines and
its applications occur in a wide variety of technologies. It involves a variety
of tasks, such as, modeling, identification, simulation, planning, decision
making, and optimization.
Some application areas of control and systems include transportation,
manufacturing, communications, processing industries, and financial
markets. The basic control systems science influences and impacts a diverse
range of study, such as, biology, physics, chemistry, economics, and
medicine.
The broader impacts of the proposed Workshop:
The need of modern industry for well-trained systems scientists is
growing and changing, due to the marketplace pressures and the advances in
technology. Future generations of our students will have to be broadly
educated to cope with cross-disciplinary applications and rapidly changing
technology. The backgrounds of our students are changing too. They are
better prepared to work with modern computing technologies. Thus the time
is ripe for major renovations in mathematics and science education in high
school. It is important to develop a cross-disciplinary set of examples,
demonstrations and laboratory exercises that illustrate systems and control
across the entire spectrum of mathematics and science. We will share with
high school teachers our successful control stories, existing tools and
experiments. There is much to be gained by the sharing of educational
experiences and practices.